International Laser Science Conference; Seattle, Washington;October 19-24, 1986 (Physics)

The International Laser Science Conference will be held in October 1986 with the annual meeting of the Optical Society of America. The joint conference lead to a particularly strong coupling between two main directions in modern optics, and will be a particularly effective format. The conferences will range from basic studies to applications.